REU Site: RE for yoU, An REU Site for Graphics Research in Rhode Island

This project establishes an REU site in computer graphics and visualization at the University of Rhode Island. A variety of multidisciplinary projects have been identified for the interns, including fundamental graphics research or research in support of a variety of applications to include graphical design, transportation, education, and bioinformatics. The internships are designed for both summer and academic year appointments, and the interns may participate in research projects in three locations: the labs at URI, the not-for-profit imedia organization, and the Frauenhofer Institute of Computer Graphics in Germany.

This project will aggressively recruit women and underrepresented minority participants from a number of identified institutions around Rhode Island. The three participating organizations will provide rare opportunities to Rhode Island undergraduates to conduct research in resource-rich environments. Interns choosing to conduct part of their research in Germany will be exposed to international collaborations and one of Europe's premiere research organizations. The projects offered should be of great interest to undergraduates and therefore should help encourage them to pursue careers in computer science.